Young Patients as Innovators: Developing Pediatric Makerspaces to Enhance Chronically Ill Children's STEM Learning, Self-Agency, and Identity

A makerspace is a place where participants explore their own interests and learn by creating, tinkering, and inventing artifacts through the use of a rich variety of tools and materials. This project will develop and research a flexible model for makerspaces that can be adapted to local settings to support informal STEM learning for hospitalized, chronically ill patients in pediatric environments who are predominantly youth of color from low-income backgrounds. These youth are subject to health disparities and healthcare inequities. Their frequent absence from school and other activities disrupt friendship formations, reduce their opportunities for social support, reduce their access to environments where they can feel a sense of self-agency through learning and creative activities. Through patient centered co-design, this project will build adaptable STEM makerspace environments conducive to STEM-rich learning, the exercise of self-agency, and development of STEM identity. Project design will focus on the sensitive nature of working with vulnerable populations (i.e., immunocompromised patients). The project will develop and disseminate several resources: (1) a flexible makerspace model that can be adapted to work in different pediatric settings; (2) research methods for conducting research in highly sensitive environments with and alongside young patients; and (3) professional development resources and a playbook including guidebook and facilitators guide that will articulate principles and processes for designing, implementing and sustaining makerspaces in pediatric settings. These resources will be widely disseminated through maker and other informal STEM networks.

The project will pursue two innovations. First, the project will develop the physical design of adaptable informal STEM makerspaces in pediatric settings. Second, the project will develop innovative patient-centered methodologies for studying approaches to physical design and the effects of makerspace installations for informal STEM-learning, self-agency, and STEM identity development. Using a design-based research approach, the project will investigate: (1) the extent to which physical makerspace designs support access to material, relational, and ideational resources for STEM-learning and well-being; (2) the extent to which makerspace installations, researchers, and medical care staff support patients in accessing and generating tools and other resources for personal learning and a sense of agency; and (3) the extent to which makerspace design with a focus on affording material, relational, and ideational resources provide rich opportunities for young patients to explore their own interests and cultivate STEM identities. One of the project's innovations, beyond development of adaptable makerspace model involves developing an innovative patient-centered methodology for conducting educational research toward broadening participation in STEM in highly sensitive medical care environments. The project will employ a mixed-methods research design and collect a variety of data to address these areas of research including documentation of makerspace design plans and renderings, observational data gathered through fieldnotes, video and audio recordings, informal interviews with patients, their families, and child-care staff, and patient generated artifacts. Articles for researchers and practitioners will be submitted for publication to appropriate professional journals and peer-reviewed publications.

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program funds innovative research, approaches, and resources for use in a variety of settings.